CAREER: Research and Education in Materials Physics

9703419 Tsui The CAREER plan seeks to enhance both research and education in materials physics at the University of North Carolina at Chapel Hill. The research component explores atomic scale synthesis and characterization of metallic thin films and multilayers grown by molecular beam epitaxy techniques. It focuses on three main objectives: (1) to elucidate diffusion processes during epitaxial nucleation and growth, and to develop techniques for producing tailored epitaxial structures and morphologies, (2) to understand the nature of spin-dependent scattering responsible for the oscillatory magnetic coupling and giant magnetoresistance effects in metallic multilayers, and (3) to shed light on low- dimensional penomensa by exploring monolayer and submonolayer systems. The education component seeks to make positive impact on the intellectual climate of the community. It employs a two pronged strategy. First, it focuses on improving teaching effectiveness in the classroom by transforming traditional lecture presentations into participatory, discovery-based courses. Second, research and education opportunities in artificially structured nano- materials are developed for high school teachers and students in the Chapel Hill-Durham area. Outreach activities toward the local community include mentor programs, lab tours, and journal clubs. %%% The CAREER plan seeks to enhance both research and education in materials physics at the University of North Carolina at Chapel Hill. The research component focuses on exploring novel electrical and magnetic properties of synthetic metallic nano-structures. It seeks to elucidate the role of artificial constraints on material properties, and to enhance our ability to produce tailored electronic and magnetic sturctures. It is pursued by systematic studies of atomic scale materials synthesis and ma terials properties using state-of-th-art techniques including molecular beam epitaxy and scanning probe microscopy. The education component seeks to make positive impact on the intellectual climate of the community. It employs a two pronged strategy. First, it focuses on improving teaching effectiveness in the classroom by transforming traditional lecture presentations into participatory, discovery-based courses. Second, research and education opportunities in artificially structured nano-materials are developed for high school teachers and students in the Chapel Hill-Durham area. Outreach activities toward the local community include mentor programs, lab tours, and journal clubs. ***